MATHCOUNTS: A Community-Based Solution to the Engineering Pipeline Problem

This proposal by the National Society of Professional Engineers will support MATHCOUNTS-- a math coaching and competition program for seventh and eigth grade students. Such support will aid in providing a community based solution to the engineering pieline problem. It will allow MATHCOUNTS to attract a greater number of volunteers to the program as well as more attention from the public.